Motivic cohomology and arithmetic geometry

DMS-0300133
Geisser, Thomas H.

Abstract

Title: Motivic cohomology and arithmetic geometry

The investigator is working on two projects.
On the one hand, he tries to extend his results on
Weil-etale cohomology and special values of zeta functions
from smooth projective varieties over finite fields
to general varieties over finite fields, and to varieties
over local fields. The other project is the examination
of properties of the de Rham-Witt complex and topological
cyclic homology of smooth varieties over complete
discrete valuation rings. Topological trace homology TR
has a Frobenius operator, a Galois action and a filtration
analog to Fontaine's functor. The investigator wants
to exploit this structure to construct etale and crystalline
cohomology, and to apply this to arithmetic problems.

In arithmetic algebraic geometry,
solutions of polynomial equations are studied.
Even though this field is more than two thousand years old,
it turned out recently that there is a variety of applications
to cryptography. One method to study a solution set of polynomials
is to associate invariants called cohomology and zeta functions
to it, and then study those invariants instead.
Since the invariants are defined in very different ways, finding
relationships between them allows to translate knowledge on
one into knowledge on the other. The investigator studies
the relationship between zeta functions and a new cohomology,
called Weil-etale cohomology, on the one hand, and a new
invariant called topological cyclic homology on the other hand.